IGERT: Big Data Social Science - An Integrative Education and Research Program in Social Data Analytics

This Integrative Graduate Education and Research Traineeship (IGERT) award draws together a diverse interdisciplinary team of researchers to create a new training program in Social Data Analytics, aimed at producing a new type of scientist capable of meeting emerging big data challenges.

Intellectual Merit: In response to massive new sources of data, "data science" and "analytics" are emerging as new fields of inquiry, merging statistics, computer science, and visualization. The greatest challenges and opportunities arise from socially-generated big data, observed as a result of human interactions that are increasingly recorded via web, mobile device, and distributed sensors, or revealed through digitization of historical records. Society faces a transformative data deluge, from which new scientific, economic, and social value can be extracted. The BDSS-IGERT project includes a new curriculum, training in advanced technologies of data science and analytics, a series of research rotations — in both academic and nonacademic settings — and a challenge mechanism, under which interdisciplinary teams compete to innovate solutions to real social data analytics problems.

Broader Impacts: A recent report estimated that big data contain unexploited economic value over $1 trillion annually, but that 165,000 positions in "deep analytics" will need to be filled. Government statistics agencies need to produce useful statistical products, at lower cost, while protecting confidentiality. Big data technologies like crisis mapping present opportunities to address grand social challenges. Further, the BDSS-IGERT project expands the participation of underrepresented groups in data science, by combining an exciting new field with a focus on diversity as a research theme.

IGERT is an NSF-wide program intended to meet the challenges of educating U.S. Ph.D. scientists and engineers with the interdisciplinary background, deep knowledge in a chosen discipline, and the technical, professional, and personal skills needed for the career demands of the future. The program is intended to establish new models for graduate education and training in a fertile environment for collaborative research that transcends traditional disciplinary boundaries, and to engage students in understanding the processes by which research is translated to innovations for societal benefit.